Purchase of a 500 MHz NMR Spectrometer

This application is intended to secure funding for a high-field (11.75 Tesla) nuclear magnetic resonance (NMR) spectrometer intended primarily for structural and dynamic studies of biological macromolecules in aqueous solution, including polynucleic acids, small-to-medium size (5-20 kD) proteins, enzyme-subtrate complexes and natural products. It will also be used for spectroscopic analysis of synthetic targets and intermediates the resonances of which are not sufficiently resolved for detailed structural work at lower field strengths. The instrument will be accessible to all members of the physical science departments at Brandeis University (Chemistry, Biochemistry, Physics, Rosenteil Basic Medical Sciences) who require the use of high sensitivity/high resolution NMR in the course of their research. For all of the projects described in the body of this application, the spectrometer is required to perform NMR structure/dynamics experiments which would be impossible to do on our present equipment, either because of time or resolution limitations on the Redfield group spectrometer, time/sensitivity/resolution limitations on the Varian XL300, or hardware limitations on both.